Project Development Travel Visit to Yugoslavia: Chemical Reaction Engineering

Description: The objective of this two-week project development visit to the technology faculty of the University of Novi Sad, Yugoslavia, by Dr. Octave Levenspiel, Oregon State University, is to investigate joint cooperation in chemical reaction engineering. Specifically, Dr. Levenspiel and his counterpart, Dr. Alexander Dudukovic, will discuss research on a new process for making ammonia. Travel funds will be provided by the U.S.-Yugoslav Joint Fund for Scientific and Technological Cooperation. No NSF funds are involved.